MRI: Acquisition of a LSM710 Laser Scanning Confocal Microscope to Enhance Plant Research and Training at the University of North Texas

This MRI award funds the acquisition of a LSM710 laser scanning confocal microscope to
support research and training in plant signaling at the University of North Texas by providing
imaging capabilities that are required for molecular and biochemical studies at the cellular and
sub-cellular levels. In addition, the confocal microscope will enhance research and training in
developmental physiology, eco-toxicology, neurobiology and microbiology. The LSM710 will
come equipped with a 34-channel spectral detector that will facilitate studying the in situ
expression pattern of genes, intracellular protein localization and protein-protein interactions,
changes in Ca2+, reactive oxygen species and sugar fluxes, and macromolecular dynamics.
Broader Impacts: The LSM710 will benefit undergraduate and graduate students and post-docs
by providing them training in the application of imaging technology for research and
development. The confocal microscope will also provide opportunities to encourage and
broaden the participation and training in the Life Sciences of underrepresented minorities, high
school-aged students and future secondary teachers through the McNair program, the Teach
North Texas program, the Texas Academy of Mathematics and Science, the Honors College, the
NSF S-STEM supported (#0807128) Fostering Outstanding Cohorts in Undergraduate Science
(FOCUS) Scholarships program, and the Howard Hughes Medical Institute Undergraduate
Science Education program at the University of North Texas. The LSM710 will support
research by these students. The instrument will positively impact the environment and society
by supporting research on the discovery, function and application of signaling mechanisms in
plants, which will augment sustainable agriculture, industry and renewable natural resources.